NSF Young Investigator

The applicant's research program, in general, involves elucidating the relationship between molecular structure and material property by using molecular orbital theory to obtain interaction potentials, and statistical mechanical/molecular dynamics simulations to describe larger scale interactions of molecular assemblies. The results will be applied to polymer/metal adhesion, selective separations mediated by complexation, sorption and transport in zeolites and alkane activation on transition metal surfaces.